Assessing the Impact of Factors Affecting Productivity UsingStochastic Data Envelopment Analysis

Multiple measures or the use of several ratios to evaluate performance almost always results in conflicting performance measures because the organization being evaluated may appear to be performing better than average on certain indicators and poorer on others. In addition business unit managers who are evaluated in terms of achieving multiple objectives are known to be concerned with the inequitable application of multiple measures because such measures do not account for factors which affect but are not under the control of the managers. The Data Envelopment Analysis (DEA) was designed to measure productivity relative to the best practice available and it accommodates multiple measures of performance (inputs and output) and adjusts for factors not under the control of management. This research seeks to develop a stochastic data envelopment analysis method and explore the statistical attributes of an extended stochastic DEA. The proposed research will be useful for empirical research and other applied work in production frontier estimation because it seeks to develop a model, (a) employing a flexible nonparametric form incorporating the impact of multiple input, multiple output correspondences; (b) incorporating the impact of both organizational inefficiency and rand factors; and (c) providing a basis for testing hypotheses within a flexible non parametric framework.